An Aerospace Structures Testing Laboratory to Enhance Learning

Engineering - Aeronautical/Astronautical (51)

The project adapts effective pedogogies for an aerospace structures laboratory previously developed at several universities. The laboratory consists of a material and structure testing machine and provides experimental experiences in at least four courses. It also allows senior capstone design teams to verify the structural performance of their unmanned aerial vehicles. The Mathematics, Engineering, Science Achievement (MESA) program at the PI's institution, which focuses on increasing the number of underrepresented populations in engineering and science through programs for grades 6-12, plans to use the laboratory in MESA classes and summer programs. The investigators plan to assess and evaluate the project results through a variety of measures in conjunction with the University's Center for Engineering Learning and Teaching. Results will be disseminated through out reach programs, over the Internet, and at conferences.